Special Minority Award (Physics) - Jon Velazquez

This Special Minority Award provides a second year of support for Jon Velazquez, a graduate student at Cornell University. The award will allow Mr. Velazquez to focus his full attention on research in the coming year. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.